GEM: Cusp Ion Precipitation Process in Response to Solar Wind Transients

This project investigates how variations in the solar wind—the stream of charged particles from the Sun—affect Earth’s near-space environment. It focuses on the magnetospheric cusp, a region where solar wind particles can directly enter the upper atmosphere along magnetic field lines. While particle precipitation under steady solar wind conditions is relatively well understood, much less is known about how sudden changes in the solar wind, known as transients, alter these processes. This project aims to uncover the physical mechanisms that control how energy and particles are transferred from space into Earth’s atmosphere in various steady or dynamic solar wind conditions during such events. The results will improve our ability to understand and predict space weather impacts on technological systems such as satellites, communications, and navigation systems.

The goal of this project is to quantitatively characterize cusp ion precipitation under both steady-state solar wind conditions and solar wind transients. The research will focus on the roles of magnetopause reconnection and cusp wave–particle interactions in driving precipitation dynamics. The study will employ the Auburn Global hybrId codE in three Dimensions (ANGIE3D), a global hybrid simulation framework capable of resolving large-scale magnetospheric processes with high spatial and temporal resolution. Simulations will be used to map reconnection dynamics, magnetospheric convection, and precipitating ion signatures onto the polar ionosphere, enabling analysis of both steady and transient conditions. In addition, the project will examine the evolution of cusp wave properties and injected ion populations through magnetic field diagnostics, ion spectral analysis, and particle-tracking techniques to resolve wave–particle interactions. Satellite observations will be incorporated to validate the modeled precipitation processes. Expected outcomes include the first global, high-resolution characterization of cusp ion precipitation under transient solar wind conditions, improved understanding of wave generation and ion dynamics in the cusp, and new insights into solar wind–magnetosphere coupling.